CAREER: Identifiability and Inferences for Structured Latent Attribute Models

This research project will address fundamental statistical issues in Structured Latent Attribute Models (SLAMs). These models serve as a basis for developing diagnostic-based assessments in education, psychology, and other social and behavioral sciences. This CAREER award will advance the theoretical and computational development of these models. The project also will contribute to improved understanding of cognitive processes involved in cognitive assessments and learning sciences. From a societal perspective, the new methods will be applied to various educational studies. The project will develop a diagnostic-based learning tool to identify specific problems and difficulties that students encounter in STEM domains and provide students with useful feedback. The investigator will engage in K-12 educational outreach in collaboration with the University of Michigan's Museum of Natural History, participating in activities such as the Science Communication Fellows Program and the Science for Tomorrow Program. Both undergraduate and graduate students will be involved in the conduct of this research. Publicly available software also will be developed.

With the creation of increasingly rich diagnostic datasets, great challenges are posed on existing SLAM theories and techniques. This project will focus on a number of open questions. First, the project will address the fundamental identifiability issue of SLAMs. A new theoretical framework will be developed as a scaffold to show the identifiability results for SLAMs, which will provide practical guidelines for future diagnostic designs. Second, the project will develop novel procedures to address the challenge in the estimation of the latent structures in SLAMs with high-dimensional latent attributes. Third, the project will develop powerful and robust statistical inference procedures for SLAMs with high-dimensional latent attributes and observed covariates. In addition to theoretical and methodological developments, the project will provide practitioners with a computational tool to explore and expand the use of SLAMs.